Investigation of Hadronic Meson Production

This grant covers experimental Elementary Particle Physics research by a group at the University of Louisville in collaboration with other NSF and DOE supported scientists. The group will complete it's study, at Fermilab, of the production and decay of vector mesons. The group will also participate in a major upgrade of the multiparticle spectrometer at Brookhaven in order to study mesonic states with unusual quantum numbers.